Mathematical Sciences Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project will be used in the following research projects: (1) The development of finite-generation methods for solving large-scale problems in extended linear- quadratic programming; (2) The development of robust algorithms for constrained optimization problems; (3) The development of algorithms for the minimization of functions with errors and global Newton methods; (4) The development of numerical methods for the solution of geophysical inverse problems.